2003 Summer Conference on Topology and its Applications; July 9-12, 2003; Washington, DC

Abstract

Award: DMS-0302516
Principal Investigator: Neil Hindman

The 2003 Summer Conference on Topology and its Applications will
be held July 9-12, 2003, at Howard University, Washington, DC.
It will be the 18th in a series of conferences begun at City
College of New York in 1984 and held recently at Miami
University, Oxford, Ohio, in 2000, at City College of New York in
2001, and at the University of Auckland, New Zealand, in
2002. There will be six invited plenary speakers: Vitaly
Bergelson of Ohio State, W. Wistar Comfort of Wesleyan
University, Niky Kamran of McGill University, Jan van Mill of
Vrije Universitaat, Peter Olver of the University of Minnesota,
and Alex Simpson of the University of Edinburgh. There will be a
workshop in Set Theoretic Topology led by Stevo Todorcevic of the
University of Toronto. All of the plenary speakers are
recognized authorities in their fields, and Todorcevic is widely
recognized as one of the two best set theorists in the world. In
addition, six special sessions are planned: Set Theoretic
Topology, Topological Dynamics and Ergodic Theory, Topological
Groupoids and Their Applications, Topological Groups and
Semigroups, Topology and Computer Science, and a session in honor
of W. Wistar Comfort.

The goals of this conference, and of the entire series are: (1)
bring to the participants the leading researchers and the latest
developments in topology and related areas; (2) foster
applications of topology to these related areas; (3) expose
graduate students to the excitement and intense research activity
of such a conference and help train them to do work in
applications of topology; and (4) facilitate communication and
collaboration among topologists from a wide geographic area, both
from this country and overseas, at a time of year which is
convenient to many faculty members. As is witnessed by the
special session on Topology and Computer Science, applications of
general topology have been growing in recent years. A particular
benefit of this conference series has been the extent to which it
has successfully encouraged the participation of women and
underrepresented minorities. (Three of the most recent
Ph.D. graduates from Howard university, all black females, each
attended and presented talks at at least one of the conferences
in the series.) The location of this conference at Howard
University will make it convenient for the active participation
of several black graduate students.